2010 Shipboard Scientific Support Equipment for R/V Atlantic Explorer

ABSTRACT

25 July 2010
Proposal Number: 1012444
Institution: Bermuda Institute of Ocean Sciences
PI: N. Bates
Co-PI: R. Harelstad

The proposal requests two Shipboard Scientific Support Equipment (SSSE) items for the R/V ATLANTIC EXPLORER operated by the Bermuda Institute of Ocean Sciences (BIOS); namely closed circuit TV up-grades and a new RADAR. The items requested will either improve safety or enhance the vessel’s science support capability.

Broader Impacts: The Bermuda Institute of Ocean Sciences vessel supports federally funded scientific research throughout the Atlantic basin to expand human knowledge of the ocean environment. The ATLANITC EXPLORER is the vessel that also routinely services the Bermuda Atlantic Time-series Study (BATS) stations. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography through real-time satellite connectivity from ship to shore, and open house events. All told, the ATLANTIC EXPLORER is scheduled to complete nearly 140 NSF sponsored days in 2010.